Weight Enumeration for Convolutional Codes

Gluesing-Luerssen
DMS-0908379

The project aims at furthering the mathematical theory of
convolutional codes. The error-correcting quality of these codes
can be measured by a variety of distance parameters that have
been introduced in the engineering-oriented literature. The main
idea of the project is the investigation of convolutional codes
based on the weight adjacency matrix, a single parameter that
comprises, among other things, all those different distance
measures. So far two major results have been established by the
investigator: a MacWilliams Identity Theorem stating that the
weight adjacency matrix of a code fully determines that of the
dual code, and a theorem stating that codes without non-zero
constant codewords and sharing the same weight adjacency matrix
are monomially equivalent. These results open up new directions
in convolutional coding theory. Firstly, self-dual codes can be
studied theoretically. Besides the obvious fact that the weight
adjacency matrix of a self-dual code is invariant under the
MacWilliams transformation, the close link between self-dual
convolutional codes and self-dual block codes obtained by
tail-biting plays a crucial role. It can be expected that,
conversely, positive results for self-dual convolutional codes
will also have an impact on the theory of self-dual tail-biting
block codes. Furthermore, the investigator explores the
MacWilliams Identity and its consequences for minimal
conventional and tail-biting trellises for linear block codes.
The analogy in the graphical representation of trellis block
codes and convolutional codes indeed suggests a parallel
treatment of these two classes of codes. Another subproject aims
at investigating under what conditions one may declare two
convolutional codes identical with respect to their algebraic
structure and error-correcting capabilities. In light of the
result about monomially equivalent codes mentioned above, the
weight adjacency matrix is expected to play a crucial role in
this project as well. The goal of this subproject is a
classification and a comparison of convolutional codes in the
sense of classical coding theory.

This project focuses on the algebraic theory of
error-correcting codes. Such codes protect data against
alteration through noise and enable the reconstruction of the
original data from the corrupted information. All current
standards of data transmission and data storage have built-in
error correcting mechanisms. The most famous examples are the
compact disk player, cell phones, the internet, satellite and
deep space communication systems. The project aims at deepening
the mathematical theory of convolutional codes. This specific
class of codes forms one of the major players in many
communication schemes, mainly in deep space communication and
other wireless data transmission schemes. With the ever-growing
demand of sophisticated information technology there is a
continuing need of a thorough mathematical theory in order to
improve the performance of such communication devices.